RIA: A Methodology for Prototyping and Optimally Designing Land-Grid-Array Connectors for Multi-Chip Modules

The aim of the project is to develop a new methodology for prototyping and designing land-grid-array connectors for multichip modules in high performance computers. An optimal design procedure to study the effects of several parameters on the connectors is a part of the investigation. A design verification procedure using scaled-up prototypes of LGA connector contacts through experimental models is also proposed.